Detection of Food and Water-Borne Pathogens through Snapshot Toxicology

The objective of this project is the development of technology for the detection of food and water-borne pathogens through the use of responsive fish chromatophores. To achieve this goal it is proposed to: (1) to entrap fish chromatophores (neuron-like cells that respond to the presence of microbial toxins by changing
darkness and/or hue) with environmental samples into semi- permeable poly-L-lysine microcapsules constructed around a dissolvable alginate shell, thereby obtaining "snapshots" of information for toxicology monitoring; (2) to compare the performance of this technology to PCR and ELISA-based assays; and (3) to manufacture microfluid devices allowing magnetic capture of the microcapsules for maintenance of internal environment and measurement of culture parameters and cell responses.